Adaptive, Profile-Based Compilation of Highly Interactive, Graphical Applications by Demonstration

Rapid prototyping environments provide high-level operations that allow users rapidly to create and modify interactive applications, such as graphical interfaces, scientific and program visualizations, and simulations (i.e., quickly program the Obig pictureO). These environments often sacrifice speed and storage for increased flexibility. Researchers have proposed optimizations that can reduce storage and improve performance. However, the programmer must manually apply these optimizations, which impedes rapid, iterative development of applications. The objective of this project is to develop adaptive, profile-based compilation techniques that automatically apply these optimizations so that the programmer can make use of rapid prototyping techniques while still retaining excellent time and storage performance. Constraints and structured graphics are targeted by this research since studies show that these two techniques facilitate the rapid, iterative development of graphical user interfaces. This project is developing techniques whereby: (1) a profiler monitors operations as they execute and extracts information about constraint evaluation and variable access, and (2) an adaptive compiler uses this information to dynamically implement various performance and storage optimizations. ***